International Conference on Modeling and Simulation

The investigators and their colleagues propose to organize an
International Conference on Modeling and Simulation, which will be
held from July 9-12, 2008 in Xi'an Jiaotong University, Xi'an, Shaanxi
Province, China. In the last two decades, the rapid development of
computer power and sophisticated computational methodology has
permitted the application of high performance computing to simulation
and modeling of unprecedented accuracy and scope applied to a wide
range of important problems. These applications have had profound
implications and applications in mathematics, science, engineering and
industry. Scientific computing is in fact the only feasible tool for
analyzing many different types of critical important phenomena such as
flow and transport, weather prediction, wave propagation, novel
material design, computational chemistry, genome sequencing and
analysis. The proposed conference will bring prominent researchers
from U.S. and Europe working in these active areas to Asia, as to
enhance and facilitate contacts and dialogs between specialists of
different fields dealing with modeling and simulation so that new
concepts can be discovered and new methodologies can express their
power.

In the past quarter of a century, along with rapid economical
developments and advancements in the Far East Asian countries,
particularly the phenomenal growth in China, there has been ever
increasing collaborations between U.S.- and Asia-based (also between
Europe- and Asia-based) researchers in all fields of scientific
research. Such a phenomenon and trend is clearly exemplified by what
has taken place in mathematical sciences latterly (thanks to the
effort and initiatives of the NSF). These cross-continental research
collaborations have already made a large impact on many fields of
scientific research, most noticeably, on the human genome sequencing
project in biological sciences and on the proof of the Poincare
Conjecture in mathematical sciences. The proposed conference will be
a contribution to promoting, enhancing, and stimulating such
cross-continental research interactions and collaborations in
mathematical sciences, more specifically, in applied and computational
mathematics,